Smooth Dynamical Systems

We propose to study the dynamics of smooth diffeomorphisms of low
dimensional manifolds. A significant theme here is the study of the
abundance of homoclinic tangencies and its effects. It has been
known for some time that homoclinic tangencies produce interesting
phenomena. They form an obstruction to structural stability, and have
a profound influence on bifurcations phenomena. While most of the
information we have about homoclinic tangencies may be considered
negative in regard to our ability to understand the underlying
dynamics, recently we obtained a positive result: generically they
lead to topologically transitive sets of maximal Hausdorff
dimension. One part of the current proposal involves understanding
the relation between these maximal dimension sets and Lebesgue
asymptotic measures. These are measures obtained by taking weak
limits of the averages of the iterates of measures which are
absolutely continuous with respect to Lebesgue measure. Recently we
have shown that in many dissipative cases SRB measures on surfaces
only exist on uniformly hyperbolic attractors. We wish to extend
this to area preserving cases and to make progress on the conjecture
that generically in highly smooth systems a non-Anosov area preserving
diffeomorphism of a surface has metric entropy zero. Another
question we will consider is whether the Henon family
has no SRB measure for a residual set of
parameters. It is a celebrated result of Benedicks-Carleson
and Benedicks-Young that SRB measures exist for a positive Lebesgue
measure set of parameters. In addition to the above, we will study
various questions on the existence of symbolic extensions in smooth
systems.

We propose to study aspects of the orbit structure of non-linear
smooth dynamical systems. Our particular emphasis will be on three
dimensional systems whose orbits return infinitely often to an
embedded transverse surface. These systems occur in models which
arise in many fields of science from Biology to Physics and even
Economics. For instance, they include the problems of general forced
oscillations and the Newtoninan motion of three bodies in a plane.
Considering the so-called first return map to the embedded surface
we are led to study the iterations of smooth transformations
(mappings) of a surface to itself. There are special motions called
homoclinic motions (first discovered and named by Poincare in the
three body problem) which are known to produce a rich, interesting,
and complicated orbit structure. In particular, typical homoclinic
motions imply the existence of infinitely many unstable periodic
orbits and other orbits which behave in an erratic and unpredictable
way. It is now known that in many cases such systems can be studied
by comparing them to statistical objects such as the random flipping
of a weighted coin. This gives rise to so-called "symbolic models"
whose orbit structure can be understood. Our research concerns the
types of symbolic systems which can occur in modeling various smooth
systems. including the estimation of certain numerical quantities
called "entropy" and "dimension" which can be used to quantify
different levels of complicated motion.